I-Corps: Translation potential of an artificial intelligence and hybrid platform for designing disease-specific biologics and molecular binders targeting amyloid surfaces

This I-Corps project is based on the development of an artificial intelligence (AI) platform for drug discovery focused on amyloid diseases that destroy nerve cells in the brain and nervous system. Abnormal amyloids are insoluble fibrous proteins that build up in tissues and organs. Caused by protein misfolding, these rigid clumps can disrupt healthy cellular function and are closely associated with serious medical conditions such as Alzheimer's disease, Parkinson's disease, and systemic amyloidosis. Traditional drug discovery struggles because native patient-derived amyloid material is scarce, fragile, and lacks the exposed surfaces required for precise therapeutic recognition. This platform addresses this problem by using physics-based models and machine learning to map the clumped proteins and surface motifs of disease states. It then designs over 100,000 unique drug candidates per cycle, optimizing them simultaneously for binding affinity, specificity, and developability. The initial focus is on producing therapeutics and diagnostics for neurodegenerative and systemic amyloid diseases. The platform has the potential to address unmet needs for millions of patients affected by amyloid related conditions by accelerating early stage drug design and improving the ability to target disease defined amyloid structures.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of an artificial intelligence (AI) and hybrid physics-based drug discovery platform for the accelerated design of disease-specific biologics and molecular binders targeting amyloid surfaces. The platform will be used to design high-affinity, developable biologics, including antibodies, nanobodies, and peptides that differentiate between structurally overlapping toxic protein aggregates by combining generative machine learning with precise structural biophysics. The initial target application is the generation of therapeutics and diagnostics for neurodegenerative and systemic amyloid diseases, including Alzheimer's, Parkinson's, and transthyretin (ATTR) amyloidosis. The technology incorporates high throughput yeast display screening with engineered mini amyloids that replicate patient derived filaments and is capable of designing more than 100,000 biologic candidates per cycle, optimized for binding affinity, specificity, and manufacturability. These empirical data streams feed back into the platform to refine predictions and improve candidate quality. Using tailored machine learning algorithms and physics-based modeling it has been possible to rapidly identify and optimize antibody candidates with high specificity and efficacy against neurodegenerative disease targets. In addition, a method has been developed to accurately reconstruct the misfolded proteins in these diseases and produce them in gram-scale quantities. This technology may unlock critical therapeutic and diagnostic advancements for the early detection and treatment of amyloidosis.